Aqueous Solutions at High Temperatures

Professor Robert Wood is supported by a grant from the Theoretical and Computational Chemistry Program to perform experimental and theoretical studies on aqueous solutions at high temperatures and pressures. This research is particularly important in understanding a variety of industrial and natural processes such as: mineral transport, deposition and alteration; hydrocarbon formation, migration and accumulation; electric power boiler corrosion; and hydrothermal reservoir utilization. Professor Wood will measure the heat capacity and density of a variety of aqueous solutions in the temperature range from 300 to 450 C, and at pressures up to 40 MPa. Both 1-1 and 2-1 electrolytes will be studied. New instrumentation will be developed to improve the speed and accuracy of these measurements under extreme conditions. Monte Carlo and/or molecular dynamics simulations will be used to predict the properties of aqueous solutions at temperatures above the current experimental limits, and to explore hydrophobic interactions at room temperature. The predictions of the hard sphere ion in a compressible dielectric continuum will be tested.